WORKSHOP: Participation of Graduate Students in a Workshop on PDE-Constrained Optimization, Santa Fe New Mexico, April 4-6, 2001

Optimal design, optimal control, and parameter estimation of systems governed by partial differen-tial
equations give rise to a class of problems known as PDE-constrained optimization. The size and
complexity of the discretized PDE constraints often pose significant challenges for contemporary
optimization methods. Recent advances in algorithms, software, and high performance computing
systems have resulted in PDE simulations that can often scale to millions of variables, thousands
of processors, and multiple physics interactions. As PDE solvers mature, there is increasing in-dustrial
and scientific interest in solving optimization problems governed by such large-scale PDE
simulations.
To address the challenges of these problems the investigators have organized a workshop on PDE-constrained
optimization on April 4-6,2001, in Santa Fe, NM. The goals of the workshop are to identify the needs
and opportunities for PDE-constrained optimization in industry and the national labs, to assess the state of the art in PDE-constrained optimization, to identify barriers to PDE-constrained optimization presented by
modern simulation codes, and to discuss promising algorithmic and software approaches for overcoming these barriers.
Sandia National Laboratories will sponsor the workshop itself. to expose a new generation of researchers to this rapidly growing area of research, the investigators will use this grant to support students attending
and participating in the workshop.